Presidential Young Investigator Award

This project is concerned with three areas of database research; geometric data, text and multimedia filing sytems and multiple disk file allocations. In search of the best method to manage geometric data, several promising methods will be analyzed and implemented for comparison. Emphasis will be given to space filling curves and fractals, such as the Peano curve, the Hilbert curve, curves based on Gray codes, because they lead to good distance preserving mappings. The second project involves the development of a multimedia document filing system. The novel characteristics of the system is that it will use signature files for text retrieval, it will use optical disks for storage and it will allow static and animated images in the documents. Declustering techniques that store a file on multiple disks to maximize the parallellism will be studied. This goal is the inverse of the first project. The problem is to group unsimilar records on the same disk. A heuristic that uses information theory and error correcting codes, because the codewords of such codes are deliberately unsimilar has been developed. Preliminary experiments show that this heuristic consistently outperforms older ad hoc heuristics.